Conference: 2026 NSF Cyber-Physical Systems (CPS Small Workshops Series)

This project supports the planning and coordination of a 2026-2027 National Science Foundation (NSF) Cyber-Physical Systems (CPS) workshop series. The series engages the broad CPS community on topics that are critical to the future of the field. Looking five to ten years ahead, the workshops explore emerging CPS research opportunities and challenges at the intersection of critical and emerging technologies, national priorities, societal well-being, and economic prosperity.

This project supports planning a series of focused workshops by the CPS community. The workshops explore research challenges and opportunities that can shape future directions for CPS. They bring together stakeholders from academia, industry, and government. The workshop series addresses national priorities and advances in critical and emerging technologies relevant to CPS. These involve artificial intelligence, quantum information science, and advanced manufacturing. It also examines community-identified priorities in application areas. These areas include agriculture, power systems, transportation, and infrastructure resilience. Through these discussions, research needs, new opportunities, and strategies for strengthening the CPS research and innovation ecosystem are identified.